Cosmogenic Radionuclides in the Siple Dome Ice Core

This award supports a three-year renewal project to complete measurement of cosmogenic nuclides in the Siple Dome ice core as part of the West Antarctic ice core program. The investigators will continue to measure profiles of Beryllium-10 (half-life = 1.5x10 6 years) and Chlorine-36 (half-life = 3.0x10 5 years) in the entire ice core which spans the time period from the present to about 100 kyr. It will be particularly instructive to compare the Antarctic record with the detailed Arctic record that was measured by these investigators as part of the GISP2 project. This comparison will help separate global from local effects at the different drill sites. Cosmogenic radionuclides in polar ice cores have been used to study the long-term variations in several important geophysical variables, including solar activity, geomagnetic field strength, atmospheric circulation, snow accumulation rates, and others. The time series of nuclide concentrations resulting from this work will be applied to several problem areas: perfecting the ice core chronology, deducing the history of solar activity, deducing the history of variations in the geomagnetic field, and studying the possible role of solar variations on climate. Comparison of Beryllium-10 and Chlorine-36 profiles in different cores will allow us to improve the ice core chronology and directly compare ice cores from different regions of the globe. Additional comparison with the Carbon-14 record will allow correlation of the ice core paleoenvironment record to other, Carbon-14 dated, paleoclimate records.